AIT (U.S.)-CCNAA (Taiwan) Cooperative Research: Theoretical Studies of Strongly Correlated Atomic Systems and Atoms in Strong Fields

9221619 LIN This is a three year cooperative study proposed by Dr. Chii-Dong Lin, Kansas State University, and Dr. Shih-I Chu, University of Kansas and Professor Tsin-Fu Jiang, National Chiao Tung University, and Professor Sy-Sang Liaw, National Chung-Hsing University. The project is supported under the AIT (U.S.)-CCNAA (Taiwan) Cooperative Science Program. This proposal plans to conduct studies of atomic and molecular dynamics under excited states and in strong fields. Both Dr. Lin and Dr. Chu are leading theorists in atomic and molecular physics. Dr. Lin plans to conduct experiments on doubly excited states within the non-relativistic framework. Dr. Chu proposes to study atoms and molecular dynamics in intense fields. These two studies are loosely connected, but each has strong scientific merit. The project provides an opportunity for U.S. researchers to expand their available resources and equipment in Taiwan for conducting this study, while they learn the critical numerical method from their Taiwan collaborating group. ***